Planning: RED Track-1 RE-PLAN CE: Revolutionizing Pathways, Licensure, and AI Next-generation Literacy in Civil Engineering Departments within California State University System

The RE-PLAN CE project will advance the professional formation of engineers by transforming how Civil Engineering departments within the California State University (CSU) system supports students during the critical sophomore and junior years of their academic journey. Despite strong transfer pathways between California Community Colleges and CSU campuses, many students continue to experience unit loss, curricular misalignment, delayed graduation, and challenges in developing a strong professional engineering identity. This project will bring together CSU and community college partners to create a seamless and equitable educational ecosystem that will reduce barriers to student success and strengthen workforce preparation. By focusing on four transformative pillars: I) seamless articulation, II) curricular efficiency, III) AI next-generation literacy, and IV) integration of engineering licensure preparation, RE-PLAN CE will help create pathways that enable students to graduate in a timely manner, enter the workforce with stronger professional competencies, and contribute to the nation’s infrastructure and economic development. Particular attention will be given to supporting continuing and transfer students who are disproportionately affected by structural barriers. The project will contribute to the national interest by improving educational access, increasing engineering degree attainment, strengthening the domestic engineering workforce, and preparing graduates to address emerging societal challenges through technological innovation, responsible use of artificial intelligence, and professional leadership. The resulting framework will provide a scalable model for large public university systems seeking to improve engineering education, workforce readiness, and social mobility.

The Track 1 RE-PLAN CE project will conduct a comprehensive investigation of the structural, curricular, and cultural barriers that affect student success and professional formation in civil engineering programs across the California State University (CSU) system. Led by CSU Fresno, in partnership with seven CSU campuses and three community colleges, the project will lay the foundation for a future NSF-RED Innovation Partnership proposal (Track 4) focused on systemic transformation. Drawing upon engineering education research, organizational change theory, and professional identity formation frameworks, the project will examine four interconnected areas: (1) development of standardized lower-division transfer pathways that reduce transfer-related barriers; (2) optimization of curricula within ABET accreditation and Cal-GETC requirements while maintaining pathway efficiency; (3) integration of Human–AI Teaming concepts that prepare students for an AI-enabled engineering profession; and (4) incorporation of Fundamentals of Engineering (FE) and Professional Engineering (PE) licensure preparation throughout the undergraduate experience. The project will address key questions related to how transfer pathways can be improved, how curricular structures can better support student progression and degree completion, how AI literacy can be meaningfully integrated into civil engineering education, and how licensure preparation can be embedded throughout the curriculum. Using a mixed-methods approach that combines institutional data analysis, articulation audits, curriculum mapping, surveys, focus groups, stakeholder interviews, and collaborative workshops, RE-PLAN CE will develop evidence-based Theory of Change and identify strategies for large-scale institutional transformation. Findings from this planning effort will generate new knowledge on multi-institutional change processes, transfer student success, engineering identity formation, and Human–AI Teaming in undergraduate engineering education. The resulting framework, implementation strategies, and partnership model will guide future reforms across the CSU system and contribute to national efforts to strengthen, diversify, and modernize the civil engineering workforce.